Fluid Bed Synthesis of Tungsten Carbide/Cobalt Nanocomposite Powders (Materials Research)

This program will explore a new approach to the synthesis of tungsten carbide-cobalt cermets with ultrafine microstructures. Chemical reactions in a reactive fluid bed will be attempted to produce nanocrystalline bimetallic powder. Attention will be directed to the changes in drag coefficients, densities, and charge susceptibilities of the bed particles as they are converted from precursor powder to bimetallic powder. Metallurgical and chemical quality of the product powder will be evaluated.